Management of Technological Innovation in Environmentally Conscious Manufacturing

9319726 Butler This project addresses the use of legacy cost in an engineering context. Researchers in the business and engineering schools of the University of Missouri have combined forces to address methods of accounting for the costs of such things as pollutants and physical hazards in the design process of innovative products.***